Understanding Science -- Improving Achievement of Middle School Students Through Content-Rich Professional Development Grounded in Classroom Practice

This resource development project would produce two professional development modules for middle school science teachers, one on Force and Motion (emphasizing teaching English learners) and the second on Energy and Chemical Change (emphasizing the integration of literacy). Guides for staff developers would accompany the resources. These modules will incorporate design principles used in a previously developed set of elementary science teacher resources. The pilot and field test populations include teachers of diverse student populations. Science content, ELL and literacy experts are in included in the review process. The leadership team benefits from the prior development work. A commercial publisher has expressed interest in publishing the resources.